Engineering Research Equipment Grant: Suss MJB 3 UV 300 High Performance Aligner

The equipment that we are requesting will aid us in evaluation of processed semiconductor material. A high performance mask-aligner is requested to support research in microwave plasma etching of sub- micron structures and microwave plasma thin-film deposition of oxides and diamond. The aligner is necessary to allow our microwave etching work to proceed into the sub-micron feature size regime.